Investigation of Phenoxy-Based Open-Shell Systems

This award is made by the Office of Special Projects in the Chemistry Division under the Materials Synthesis and Processing Initiative. This research will optimize the photochemical generation of phenoxy free radicals with regard to the type of substitution and the irradiation wavelength employed and apply the methodology to study electron exchange-controlled magnetic interactions in both molecular and polymeric systems. Solid state stable phenoxy polyradical systems will also be prepared and magnetic interactions in the solid state will be determined using spectroscopic and magnetic susceptibility techniques. %%% These fundamental structural and mechanistic investigations are directed towards developing rules to describe magnetic interactions both within and between molecules which may permit the design of a new generation of bulk organic ferromagnets.